Algebraic Algorithms in Discrete Optimization and Tools for Computational Convexity

This is a research project in Computational Mathematics. Our goal is to
use new algebraic ideas for the development of algorithms to solve
discrete optimization problems. Discrete optimization is the study of
optimization problems in which there are a finite (but usually very large)
number of potential solutions. These are not enumerated but rather defined
implicitly by equation or inequality constraints, e.g., linear or
nonlinear relations. We focus in non-linear integer programs with
polynomial constraints which are notoriously difficult and we explore
several non-traditional tools for solving them, including multivariate
rational functions and complex analysis, polynomial Hilbert's
Nullstellensatz certificates, and new canonical reformulations for integer
linear programs. We are also interested on closely related problems in
computational convexity. Including the computation of polyhedra related to
optimization, the practical approximation of regions by unions of
polyhedra and the solution of geometric problems using convex programming
methods.

Software and algorithms for solving discrete optimization problems has
potential applications to many fields of huge practical importance, such
as data mining, finances and economics, transport scheduling (e.g. crew
scheduling problems), and circuit design. Examples of discrete
optimization problems include the minimum spanning tree problem of
selecting the least expensive network connecting given sites or the
traveling salesman problem (TSP) consists of selecting the least expensive
tour of a given set of locations. Since most discrete optimization
problems are useful but very difficult to solve, researchers have explored
special structures to be able to solve them in practice (e.g., in the case
of the TSP) or settle for algorithms that compute near-optimal solutions.
In our project we try non-traditional tools based on recent mathematical
progress as a way to approach these very difficult problems. We also have
a strong educational component for this project. Several graduate and
undergraduate students will all play important roles in the project's
development.